RAPID: PHYSICS OF CORONAVIRUS SARS-COV-2 SURVIVAL OUTSIDE A HOST AND IMPLICATIONS FOR SEASONAL DEPENDENCE OF COVID-19 OUTBREAKS

There is currently a lack of information on SARS-Cov-2 particle stability in varied environmental conditions. This project will create mechanistic insight which will estimate the persistence of infectious particles and is critical for predictions of viral spread as well as informing public health. Two graduate students will collaborate during these experiments. This work will form a substantial part of the graduate thesis for these students. Measurements of structural limits of viral particles using atomic force microscopy and holographic optical tweezers will also inform our general knowledge of the viral envelope stability as applied to other enveloped viruses.

The COVID-19 disease caused by the SARS-CoV-2 (2019-nCoV) virus poses an acute and novel public health crisis. The knowledge gained from the proposed work will immediately inform the projections of viral survivability under various environmental conditions. The measurements will also establish complete and efficient workflow for handling SARS-CoV-2 particles with advanced optical trapping and atomic force microscopy techniques. The technical expertise gained will be valuable in case similar measurements would be required under the highest bio-safety environments (BL4 condition) with live virions.